Dynamics of an Urban Carbon Dioxide Dome

Balling - 9817781. There has been substantial debate in the scientific community and elsewhere regarding the climatic and ecological effects of a continuing buildup of atmospheric carbon dioxide. This project propose that urban areas represent meso-scale, real-world examples of what happens at high atmospheric levels of carbon dioxide. Such high levels have been demonstrated in a pilot project in Phoenix Arizona and this study will investigate the spatial and temporal dynamics of this urban carbon-dioxide dome, assess its effects, and evaluate how human activities influence the distribution of carbon dioxide near Phoenix and cities in general. This will be an interdisciplinary study with three phases. 1) It will make detailed measurements of local CO2 concentrations, high resolution meteorological observations, land-use patterns and human activities within Phoenix. 2) It will determine the influence of local meteorological conditions on the temporal and spatial distribution of CO2 and consider the interaction between this greenhouse gas and local temperature conditions. 3) It will integrate these different patterns in a modeling effort that will allow projections of different human-activity patterns and urban-CO2 distribution. This work will provide an understanding of how and why CO2 levels vary across a city. It will emphasize the interactions between land use, human activities, and meteorological conditions within an urban matrix. It will allow projection of anticipated population expansions on the Arizona region. The project has substantial educational components and clear links with the Central Arizona-Phoenix Long Term Ecological Research Program.